An Undergraduate Faculty Program in the Social Sciences to Enhance Quantitative Instruction on American Society

This project will make available recent developments in quantitative research on American society to undergraduate teachers. These developments are based in the creation of large data sets on American society, in the application of powerful statistical techniques to contingency table analysis, and in programming these techniques for micro-computers. In addition, instructional materials have been developed in the last few years which facilitate the undergraduate teachers' task of conveying this knowledge to undergraduates. The convergence of these developments will be the focus of an interdisciplinary program for enhancing undergraduate faculty skills. In each of three years, twenty faculty who teach primarily undergraduates in sociology, political science and American history will participate in an intensive, seven-day introductory workshop at Harvard University. The Workshop will be led by James A. Davis, who created the General Society Survey, contributed to the Development of contingency table analysis and development of contingency table analysis and developed the micro-computer programs which make these data and statistical techniques accessible to undergraduates. Participating faculty will cover the major substantive findings from the GSS and the National Election Study (NES), statistical techniques and computer programs which make these findings accessible at the undergraduate level, and also work with student exercises and data sets created by the staff of the workshop; that explore these recent developments on microcomputers. Following the initial Workshop, faculty participants will prepare their own instructional materials adapting these new developments to their individual teaching situations. Workshop participants will return within a year for a shorter Demonstration Workshop in which they discuss the instructional innovations they have made with other graduates of their workshop and up-date their knowledge about data and appropriate computer programs. Over the three years, it is expected that the Programs will have a significant impact on undergraduate teaching about American Society at the institutions represented. In addition to the NSF funds, participants' institutions will contribute about 10% in travel costs to the operation of the project.